Acquisition of a BAS 100B/W Electrochemical Workstation

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Indiana University-South Bend acquire an electrochemical workstation which will be used in research. The research activity to be supported includes an investigation of the electronic properties of a series of metal cluster compounds which contain ligands, and the investigation of the electron transfer and redox properties of arsenite oxidase. An electrochemical workstation allows researchers to employ commonly used electrochemical techniques such as cyclic voltammetry and anodic stripping voltammetry. These techniques study phenomena associated with electron transfer at the interface of an electrode and solution.